Presidential Young Investigator Award: Computer Research (Software) - Dynamic Construction of Large Software Systems

The first project is on extendable systems, systems in which a user can add capabilities that were not originally anticipated by the designer. Many such extendable systems exist-such as Emacs, Excel, and Tex-but several key problems with extension mechanism have not been solved. Reduced cost of constructing extendable applications by providing a system-wide extension mechanism (called the Extension Interpreter) that is shared by all applications, and reduced problems of users having to learn new extension programming languages for each extendable application by using existing languages (such as C and Icon) as extension programming languages have been achieved. Currently exploring the degree to which these approaches support not only extension but also the dynamic construction of large software systems is underway. A second project is on environments for parallel programming (this is joint work with Professors L. Snyder and L. Adams). As a follow-on to work on Gandalf (and Snyder's work on Poker), a graphical environment in which parallel programmers explicitly define their programs through a number of views (for instance, a communication graph view and an input/output view) is being built. The third project is on heterogeneous computing systems (joint work with Professors Lazowska, Levy, and Zahorjan). The overall goal of the project is to reduce the costs of introducing a new system type (such as a Micro Vax, a Lisp Machine, or a Tektronix Pegasus) into the department computing environment. This project combines research in both software engineering and also distributed systems. Current work covers heterogeneous filing and heterogeneous remote procedure call, as well as understanding and carefully describing the software structure- emulation, indirection, and interpretation-that have come up repeatedly in this project.